Statistics Department Minicomputer Center

The Statistics Department will establish a departmental computer center for use in all its statistics courses. The center will consist of a Prime 2255 minicomputer with software and peripherals, and 16 IBM PC microcomputers. The PC's will be connected to the minicomputer in order to provide access for computer-intensive calculations, and they will be used alone for calculations for which they are more suitable. The facility will enable the Department to tailor the system to statistics calculations and to conduct statistics laboratories. Both activities will allow students in statistics courses more appropriate access to computers and will allow them to use better analysis tools and larger data sets on which to perform analyses.